Mathematical Sciences: Connecticut Logic Seminar

This award will allow the Connecticut Logic Seminar to invite one outside speaker per month during the three nine-month academic years 1988-1991. The seminar has a distinguished history going back to 1974 and has materially advanced research in mathematical logic at the member institutions: Bard College, University of Connecticut, Vassar College, Wesleyan University, and Yale University, as well as for other individual logicians who have been associated with it from time to time.